NIRT/GOALI: Fundamental Study of Bulk Magnesium Matrix Nanocomposites Fabricated by Ultrasonic Cavitation Based Solidification Processing

Abstract 0506767

The NIRT research program is to advance both the fundamental understanding and knowledge of ultrasonic cavitation based solidification processing of complex bulk magnesium-based metal-matrix nanocomposite materials/components and their processing/structure/property relationships. Six interrelated research tasks are planned. In Task 1, a functional experimental system for ultrasonic cavitation based casting will be developed to demonstrate scalability for high volume production. Task 2 focuses on the understanding of the process by monitoring transient cavitation activities and on the optimization of the process to achieve uniform nanoparticle dispersion in Mg melt. Task 3 is to characterize the micro/nano structure of the resultant nanocomposites. The dislocation structure in the matrix around nanoparticles will be examined to understand the mechanism of strengthening by nanoparticles. Task 4 will perform multi-scale modeling of cast Mg nanocomposites to develop a fundamental and quantitative understanding of how the nanoscale structure influences properties. Task 5 will experimentally characterize the effect of nanoparticles on the mechanical properties (at elevated temperatures as well as at room temperature) of cast Mg matrix nanocomposites by tensile, creep, in-situ deformation and fatigue studies, nano-indentation, fracture-toughness, and tool-wear testing. Task 6 is to establish the processing/structure/property relationships by correlating the ultrasonic cavitation activities with the results from the experimental and analytical studies.
Cast bulk Mg alloy matrix nanocomposites can have a widespread impact on the automobile and aerospace industries by significantly improving the vehicle energy efficiency and performance. The educational components include multi-campus curriculum development at University of Wisconsin-Madison, University of California-Davis, and Georgia Institute of Technology, research student exchange, and a Nanotechnology Awareness Program (NAP) to attract and engage students (from colleges and high schools) and Technology Education teachers, especially those from underrepresented groups. Outreach activities will expose more K-12 students, teachers, and industries to nanotechnology.